Applications of Homotopy Theory

Abstract

Award: DMS-0707014
Principal Investigator: James E. McClure

The principal investigator plans to work in four quite different
areas where homotopy-theoretic methods can be applied. The first
area is string topology. This part of the project is joint with
Ralph Kaufmann; Kaufmann and McClure will combine their previous
work on string topology in order to obtain a lifting of string
topology to the chain level for arbitrary genus. The second area
is surgery spectra. This is joint with Gerd Laures; Laures and
McClure will complete their proof that certain symmetric
L-spectra have E-infinity ring structures and that the symmetric
signature is an E-infinity ring map. They will also extend their
work in order to show that a certain map from algebraic K-theory
to symmetric L-theory defined by Weiss and Williams is an
E-infinity ring map. The third area is intersection homology.
This is joint with Greg Friedman and Scott Wilson; Friedman,
McClure and Wilson will work to develop homotopy theoretic
structure on intersection chains which should (for example) lead
to the development of a rational homotopy theory of stratified
spaces. The fourth area is C* algebras. This is joint with
Marius Dadarlat; Dadarlat and McClure will work to show that the
classical work of Dixmier and Douady on bundles whose fibre is
the algebra of compact operators can be extended to bundles whose
fibre is a Kirchberg algebra.

The original goal of homotopy theory was to develop methods which
could be applied to geometric problems (including problems in
dimensions higher than three). Since its origin in the early
twentieth century, homotopy theory has developed into an
autonomous discipline, but the connection with geometry has
always been a central concern. Since about 1960, it has become
apparent that homotopy theory has applications to other things
besides geometry, for example to analysis, algebra, and more
recently to physics. The work of the principal investigator and
his coauthors is intended to take the latest developments in
homotopy theory (for example, the theory of symmetric spectra)
and apply them to other areas, including geometric problems (the
classification of higher-dimensional shapes), and problems in
mathematical physics (string topology is part of the program
being carried on by many people to develop a clearer mathematical
understanding of ideas from string theory).